SBIR Phase II: Multipass Second Harmonic Generation

This Small Business Innovation Research (SBIR) Phase II project is to develop low-cost, 20-50 mW blue
and green lasers for bioinstrumentation applications. The Phase II program objectives are to : (i) design, assemble and test 20 mW 505 nm laser prototypes; (ii) to validate laser performance in a commercial bio-instrumentation application, and (iii) to assemble, test, and validate 50 mW blue-green laser prototypes using a higher efficiency second harmonic generation (SHG) architecture.

The commercial application of this project will be the availability of inexpensive laser light sources for researchers in cellular biology and DNA sequencing.